Geometric Group Theory and the Topology of 3-Manifolds

DMS-0203883
G. Peter Scott

Geometric Group Theory and the Topology of 3-Manifolds

The proposer plans to continue his joint work with Gadde Swarup on
connections between geometric group theory and the topology of
3-manifolds. In the 1970's, the theory of the characteristic
submanifold of a compact 3-manifold was completed. Starting in the
mid 1980's, it began to be apparent that there were analogues of
this topological result in the purely algebraic setting. Several
authors have worked on this in the last 15 years, but so far none
of the results have been truly analogous to the topological
results except in very special cases. Now the proposer and Swarup
have produced the first true algebraic analogues of the
topological results and they plan to continue their investigations
in order to see how far their results can be carried. Their
arguments and results have already given new insights into the
topology of 3-manifolds and led to new results in geometric group
theory. The proposer expects that further work in this area will
have a significant impact on geometric group theory.

The proposer plans to continue his joint work with Gadde Swarup on
connections between group theory and the theory of 3-dimensional
manifolds. About 40 years ago, some remarkable, and entirely
unexpected, work of Stallings first demonstrated the depth of
these connections. More recently, work of several authors
continued this theme by showing that groups can be decomposed in a
fashion closely analogous to the way in which 3-dimensional
manifolds can be decomposed. The proposer and Swarup have given a
new approach to this area and they plan to continue their
investigations in order to see how far their results can be
carried. Their arguments and results have already given new
insights into the theory of 3-dimensional manifolds and led to new
results in group theory. The proposer expects that further work in
this area will have a significant impact on group theory.